Fractal Nanoarchitectures

The fields of macromolecular, dendrimer, polymer, supramolecular chemistry, and
nanotechnology, are expanding rapidly as they intersect and integrate. The research proposed
herein, describes new material construction and analysis. Benefits to the public will arise through
the reporting of basic scientific results, applied technology, student training, and outreach
programs in this cutting edge field.
Intellectual Merit: The proposed activity explores novel and innovative routes to new
application-oriented materials predicated on logical extensions of foundations in prior results of
the principal investigator. Terpyridine-based dendritic networks, fractal nanoarchitectural selfassembly,
and shape-persistent nanoscale constructs introduce new avenues and concepts for
macromolecular construction and utility. Fractal nanomolecular design and syntheses further
integrates the spatial arts and mathematics by incorporating self-similar motifs at different
molecular scales. Melding of supramolecular macromolecular chemistry with that of classical
organic and inorganic regimes will lead to new thought processes," available methodologies, and
building blocks for material and device engineering.
Specifically, we herein propose to expand our investigations of branched architectures via
dendritic construction based on (1) "dendrimer-to-dendron" connectivity, since we have
developed terpyridine-metal-terpyridine assembly of preconstructed dendrimers and dendritic
components resulting in novel network-based architectures. Additionally, we intend to (2) extend
our studies on fractal architectures for the construction of nanoscopic, precisely positioned,
multiple metal arrays; and (3) investigate the potential and effects of incorporation of shapepersistent,
terpyridine-based ligands in the construction of polymetallic, hyperbranched
architectures.
Broader Aspects: Advancement of discovery and understanding of the proposed work
will promote the integration of student training and enrichment, at all education levels, including
K-12, undergraduate, graduate, post-doctoral and visiting scientists (national and international),
by providing appropriately staged conceptual and technical scientific challenges. This will
facilitate student competence while instilling and nurturing specific elements of critical thinking,
requisite for all disciplines. Participation of underrepresented groups and minorities is encouraged
through direct support (from additional funding sources) and community outreach projects
(primarily through the College of Polymer Science and Polymer Engineering) and include innercity
school presentations and K-12 teacher involvement that broadly promote scientific and
technical understanding. Additionally, scientific information about polymeric materials, and
dendrimers in particular, is promulgated through the principal investigator's website
(www.dendrimers.com ) which currently averages 6,000 - 7,000 visits per month.
The Akron-Cleveland metroplex has approximately 3 million residents (a 500 mile
radius encompasses 42 % of the US population and 40 % of the Canadian population). This
provides a broadly diverse workforce (with unique polymer-related opportunities for regional
interactions) with close to 2000 polymer companies within 100 miles. The proposed activities
will enhance the N.E. Ohio workforce through research, training, presentations, and education,
thus augmenting the mission of the University of Akron and the U.S. scientific agenda in the
community and region.
Commercialization of discoveries and technologies arising from the proposed work will
be facilitated by the University of Akron Research Foundation and Office of Technology
Transfer, in association with the Akron Commercialization Center and the newly-formed
Materials Experiment Station, (all under the auspices of the University of Akron) that is
committed to aggressive marketing of University research.